Presidential Awards For Excellence In Science, Mathematics and Engineering Mentoring.

9612422 Sandoval Established in 1982, the NM MESA currently serves approximately 2,500 students in 7 middle and high schools throughout the state, with 85% of the participants being underrepresented minorities and 59% being female. Mentoring is a critical component of the MESA success, which also includes: I. Weekly contact with advisors/teachers, tutoring, academic counseling, curriculum based enrichment activities, leadership workshops, field trips, summer enrichment classes, career awareness speakers, scholarship opportunities, and academic competitions; II. A continual support system that increases students chances for success in higher education, because they have developed study, research and cooperative learning skills; III. Over the last three years, 88% of NM MESA graduating seniors enrolling in two or four-year institutions and 71% of those having chosen mathematics, science, or engineering related majors; IV. Significant MESA impact upon the course offerings and enrollment for participating schools -- e.g. increase in the number of minorities enrolled in college intended mathematics and science course sequences; and V. Steady growth in the number of schools and school districts that have chosen to participate; school districts must contribute their own resources in this model of shared responsibility for financial and academic support; the NM State Legislature has provided a steady growth in funding over the past years.